Collaborative Research: Development of a High Speed Cell Mechanical Property Testing Cytometer

Identifying a certain cell type based on a specific signature, separating cell mixtures according to cellular differences, and studying changes in a specific signature with cell environments are important techniques in biological research. While various biochemical markers of cells have been extensively used for decades, biomechanical properties such as cell stiffness are increasingly recognized as an important indicator of cell type and physiological state. The mechanical properties of cells are defined by the membrane, cytoskeleton and the volume of the cell, and are likely associated with basic characteristics including type, growth, stage of differentiation, and response to the environment. Existing mechanical characterization tools, however, can only examine a few cells at a time, severely limiting their utility and application due to the low throughput associated with the sequential isolation and probing of individual cells.
Here, a high-throughput method will be developed, where optical-based mechanical “stretching” forces are applied to cells in microfluidic devices. By the end of this 3-year project, a device capable of the rapid measurement of cell mechanical properties will be built and tested on bovine blood cells, vascular cells, and human HeLa cells. A number of broader impacts are expected including providing new research opportunities for undergraduate students, new teaching opportunities at the high-school level, and new recruitment efforts for underrepresented groups within the state of Colorado.